(TSE03-H) Assessment Tool and Visualization for Regional Supply Chain Impacts

This grant provides funding to construct and demonstrate a decision-support
and visualization tool to examine the spatial distribution of supply chain
environmental impacts and sustainability implications of producing many
different goods and services in the United States. This work builds upon
an existing 500-sector economic input-output model of the United States
economy that has been used in conjunction with energy, environmental, and
other data to show where in the supply chain impacts occur.

Currently, most models in this domain provide only total national level
estimates. This project will take the first steps to highly
detailed estimates in this project by providing regional and state-level
indicators. This method should also allow specific firms to compare their
known supply chains with our estimates from each sector. Local analyses of
economic changes typically omit the many indirect supply chain effects that
occur. For example, the emissions related to automobile manufacturing
extend far beyond the assembly plant. The result of this project will
trace purchases among 485 economic sectors and identify
possible supplier locations among existing plants. The spatial
distribution of impacts, the location of supply chain and transportation
routes will be visualized in a Geographic Information System (GIS).
Typical analyses include location of a new automobile assembly plant,
infrastructure investment, shifts to ecommerce, growth in service
sectors, etc. Use of the analysis system is intended help reduce
environmental effects of the regional economy, e.g., by reducing
transportation demands, moving suppliers closer to the production
facilities, showing a firm's indirect impacts, etc. With free availability
on the World Wide Web, we anticipate widespread use of the system.